FRG: The Mathematics of Financial Risk Management

The goal of this project is to develop rational and implementable methods
to measure and control risk in the finance industry. The topic is timely
because there have been some spectacular failures in the finance industry,
because regulations are under discussion which would institutionalize
quantitative risk measures, and because the leading risk measure, "value-
at-risk," has undesirable properties. Chief among these is that in certain
situations, situations that often arise in credit-risky markets, meeting
regulatory value-at-risk requirements encourages concentration of risk
rather than diversification.

The proposal builds on the idea of coherent risk measures developed by a
team, which includes one of the principal investigators on this proposal.
This team developed a set of axioms deemed to be desirable, and then
characterized those "coherent" risk measures which satisfy these axioms.
Their work showed that every coherent risk measure can be characterized
by a set of probability measures over possible future scenarios. A three-
part project is proposed. The first part is to develop a decentralized
implementation of risk control based on coherent risk measurement. This
requires development of duality theory and equilibrium pricing within a
firm. The second is to elicit scenarios and estimate model parameters in
real settings. This mandates refining the mathematical models to the point
that a manageable number of measures over future scenarios present
themselves, and appealing to statistical theory to make those choices.
Finally, it is proposed to extend the existing theory of coherent risk
measures. This project is being supported under the Focused Research
Groups in the Mathematical Sciences activity.